CAREER: Battery-powered wireless bandages for personalized wound care

Chronic wounds represent a significant global health burden characterized by high healthcare expenditures, elevated amputation risks, and increased mortality. Current diagnostic methods rely on subjective visual assessments, frequently resulting in delayed or inaccurate clinical interventions. While smart bandages integrated with battery-powered sensors that monitor wounds have been developed, clinical translation is hindered due to their bulkiness and reliance on potentially toxic materials. This CAREER project seeks to address these challenges with a multi-pronged, integrated approach that involves innovative sensing technologies, batteries, and wound fluid sampling. The project will develop a new class of wearable miniaturized biochemical sensing devices powered by thin-film batteries that are fully composed of non-toxic, wound-friendly materials. These devices will enable user-friendly, real-time, at-home wound assessment and timely intervention without interfering with the delicate healing process. Furthermore, the project involves education and workforce development through industry partnerships, K-12 workshops, and training programs for citizen scientists.

There is a critical need for advanced wound monitors that are user-friendly, biocompatible, sustainable, and cost-effective. This project addresses this requirement through three integrated research thrusts: Thrust 1 focuses on the development of non-toxic, biofuel cell-based sensor arrays for the precise detection of molecular biomarkers relevant to healing in wound exudate; Thrust 2 involves the engineering of high-performance, non-toxic thin-film batteries; and Thrust 3 integrates these components into a smart bandage featuring nature-inspired microfluidics and wireless electronics for autonomous, real-time assessment. The system's efficacy will be validated using a murine wound model, with sensor data analyzed via classical statistical and artificial intelligence/machine learning (AI/ML) models to identify early indicators of impaired healing. The project embodies significant novelty across advanced sensors, battery technology, microfluidics, and low-power electronics which will find immediate applications beyond wound care as well, for example, in areas such as personalized diagnostics and defense.